Application of Chemical Adhesives in Masonry Mortars

The project will investigate the feasibility of chemical adhesives, polymers and epoxies as additives to increase the strength of mortars used in masonry construction.